Study of the Structures, Stabilization Energies and Reactivities of Substituted Methyl and Allyl Radicals and Homotrimethylenemethane Diradicals (Chemistry)

This grant in the Organic and Macromolecular Chemistry Program supports the research of Professor Daniel Pasto, which aims at an experimental and theoretical study of the electronic and physical properties of highly reactive intermediates that contain one or more unpaired electrons. This is an important area of chemistry because it is becoming increasingly obvious that a great many reactions that were once thought to proceed by pathways involving only paired electrons are now known to include open-shell species. Our knowledge of such free radical species is rather limited and methods for describing their relative energies and those factors that influence their chemistry are fundamental to an understanding of mechanistic organic chemistry. The calculations will be focused upon the stabilization energy to be derived from placing various electron-withdrawing and-donating substitutents on radical centers. The relative reactivities of a series of mono- and disubstituted methyl and allyl radicals, and homotrimethylenemethane(HTMM) diradicals will be examined with a particular emphasis being placed upon the origin of captodative effects in such open shell intermediates. Experimental studies on the rate of formation of various HTMM diradicals and the regioselectivity of reactions of stereoisomerically substituted allyl radicals will complement the theoretical investigation.